MGR Honorable Mention: Donald M. Carter.

This special award will give Ph.D. student Donald M. Carter additional flexibility in pursuing his graduate studies and research initiation in cultural anthropology. This award will strengthen minority participation in research in this area.